Introducing Modern Investigative Laboratories in Cellular, Genetic, and Developmental Biology to Undergraduates at Duquesne University

Undergraduate students are taught basic techniques in developmental biology and then use these techniques to design and execute a miniproject related to topics discussed in class. Equipment includes microscopes, incubators and electrophoresis systems.